The 6th National Conference of Black Physics Students

This project is for the 6th National Conference of Black Physics Students (NCBPS) at Stanford University in February, 1992. The purpose of the conference is to assist and encourage those black students who have already shown interest and ability in physics to enter and complete Ph.D. Programs, and to initiate research careers in Physics. The primary audience for the conference are undergraduate students who are majoring in physics, or who have expressed an interest in physics; a principal goal of the conference is to permit these students, who are in the process of making career decisions that will shape the course of their working lives, to meet and interact with black graduate students, and senior black scientists who can serve as role models and mentors.